ENG Research Equipment Grant: Equipments for Parallel and Neural Computing Projects

This Research Equipment Grant will make it possible for the Department of Electrical Engineering at the State university of New York at Stony Brook to strengthen its research program on Parallel and Neural Computing. The department will purchase a 128-processor CNAPS computer and a Sun Ultra Sparc workstation which will be dedicated to support research in parallel and neural computing. The equipment will be used for four research project s including: 1) neural control; 2) image processing; 3) parallel system simulation; and 4) Bayesian neural network for modeling and control. These projects all require data intensive simulations. The equipments selected is especially designed with these needs in mind. The 128-processor CNAPS computer is a SIMD (Single Instruction Multiple Data) parallel computer ideal for neural network and image processing applications. The ultra-fast Sun workstation will allow fast, concurrent access to the proposed 128-processor CNAPS system and the existing 64-processor CNAPS system. It can also provide an infrastructure for parallel system simulation.